III-COR: Scalable Publish/Subscribe: Unifying Data Processing and Dissemination

The Digital Age has brought about unprecedented growth in the amount
of data being generated, the number of data consumers, and the
diversity of their interests and locations. Traditionally, users poll
sources for information, but for many applications, polling is hardly
scalable and may miss important events. The alternative offered by
publish/subscribe systems is to push notifications to users with
matching interests. This approach suits many applications, ranging
from personal, commercial, medical, to environmental, military, and
security. However, traditional publish/subscribe systems are becoming
inadequate for advanced applications, where users want to receive
information that has been filtered, joined, and summarized, and only
when certain conditions are met.

This project aims at building a next-generation publish/subscribe
system to face the new challenges. The PIs propose an end-to-end
solution consisting of techniques from subscription processing and
indexing to dissemination network design, which work together to
support efficient and powerful subscription functionalities, allowing
users to control precisely what they want and when they want it.

One main feature distinguishing the proposed approach from previous
work is joint consideration of subscription processing and
notification dissemination. Traditionally, these problems are
considered separately by database and networking communities.
However, there exists a wide spectrum of interesting alternatives for
interfacing processing with dissemination. The PIs propose a
promising approach that allows complex, stateful subscriptions to be
handled by simple, stateless dissemination mechanisms, with a clean
system design that is easy to implement and scale. A cost-based
optimizer, inspired by database query optimization, chooses the best
processing and dissemination strategies jointly and dynamically.

Besides system building, this project tackles many new algorithmic
challenges, including, e.g., scalably processing a large number of
complex subscriptions; exploiting event and subscription
characteristics to combat worst-case complexity; balancing semantic
similarity and network proximity in dissemination network design; and
efficiently maintaining statistics for high-dimensional events and
subscriptions.

Broader Impact:

Bringing together their expertise in databases and algorithms, the PIs
have a track record of collaborating with each other and with
researchers outside computer science. A planned application of the
system is to help ecologists with environmental monitoring.

The PIs are committed to integrating research and education, and in
particular undergraduate research, by following their tradition of
involving undergraduates through REU and department fellowships. The
PIs are collaborating on an effort supported by the Department of
Education, to increase workforce diversity for women, minorities, and
persons with disabilities. They also participate in an internship
program for underrepresented groups, which provides minority students
opportunities to perform paid summer research with Duke faculty
members.

Project URL: http://www.cs.duke.edu/dbgroup/prosem/